I-TANGO: Intersections --- Topology, Accuracy and Numerics for Geometric Objects (in Computer Aided Design)

DMS-0138098
Thomas J. Peters

The investigators will define new representations for
intersecting spline surfaces within computer-aided design
(CAD) geometric objects. They will also create algorithms
to compute error bounds for approximated intersections
representing topological boundaries. Many modeling
techniques for geometric design depend upon reliable
intersection algorithms. Intersection algorithms will be
designed to deliver spline-based CAD geometric models that
can be robustly used within a variety of engineering
calculations. These intersection representations and error
bounds will significantly improve robustness between engineering
design and computational applications for stress analysis,
fluid dynamics and electromagnetics. No single intersection representation or method will be appropriate for all
intersection problems, similar to the mature view
taken in computational linear algebra relative to matrix
inversion. There, a matrix is first analyzed as to whether
it is singular, ill-conditioned (as in the case of a Hilbert
matrix), positive-definite, etc. For these approximated
spline intersections, new guaranteed error bounds will be
developed, as well as corresponding new criteria for
semantic consistency of the intersection boundaries formed
within spline-based geometric models.

For example, the significant improvements to approximated
spline models from this project will provide clear benefits
to science, industry, and defense. The delivery of the
Boeing 777 airplane has been hailed in the popular press
as the first production of a 'paperless' airplane, meaning
that computerized models supplanted the traditional paper
drawings of the engineering design room. While an impressive
milestone, the next ambitious step is to eliminate many of
the physical prototypes used for destructive testing
and engineering analyses prior to releasing an airplane.
These tests on physical prototypes are expensive. An
appealing, cost-effective alternative is to reliably
simulate the complex behavior of turbulence, stress and
strain on computerized geometric models of these aircraft.
Progress towards that goal has been delayed by inaccuracies
introduced in the geometric input to these simulations,
specifically along intersection boundaries, and improvement
of such intersections is the primary focus of this project.
This project will ensure relevance to these contemporary
aeronautical design problems by the participation of
Boeing scientists and engineers.